Gulf Oil Spill Disaster Coverage

National Geographic Television is creating multi-platform media to communicate the scientific and engineering stories unfolding in the Gulf region due to the major oil spill. The Deepwater Horizon oil spill is one of the worst environmental disasters to occur in the U.S., and though traditional news outlets continue to report on the spill, there is little discussion about the scientific factors at play. They include the technology and engineering skills needed to stop the leak and contain the oil; the scientific and engineering efforts to mitigate its effects; and the potential impacts on the Earth system. Communicating these scientific and engineering concepts to the public is both critical and urgent.

National Geographic is uniquely positioned to take the lead in reporting on the science and engineering behind the spill and its implications. Deliverables will include: a 60-minute "Explorer" documentary television program to air on the National Geographic Channels in September 2010; 16 weekly online "Science Journal" segments featuring interviews with scientists, engineers, and other experts, promoted through National Geographic's social media channels; ongoing online news coverage and blog reports from the Gulf region; and online content for children. Funding from the National Science Foundation will specifically support coverage of the yet-to-be-filmed science and engineering segments for the television program and digital content.

The television program and digital content will reach a broad public audience with critical science and engineering concepts. The entire project is designed to communicate scientific messages from the Gulf in real time and over the longer term, and in so doing, to enhance public understanding of science and engineering as it relates to the oil spill crisis.